SGER Grant: Initial Development of a User Interface for Scientific Information Retrieval

The principal investigator will develope a menu-driven prototype Macintosh user interface that will facilitate access to scientific databases through the National Center for Supercomputing Applications.